Topological recursion, the Laplace transform, and integrable systems

Abstract

Award: DMS-1104734
Principal Investigator: Motohico Mulase

The project is aimed at identifying the geometric structure of the
Eynard-Orantin recursion formula that was originally discovered in
random matrix theory and statistical physics. A particular emphasis of
the project is placed on developing a point of view of the Laplace
transform as the mirror map. The goal of the project is to solve the
Remodeling Conjecture in algebraic geometry due to string theory
physicists Marino and Bouchard-Klemm-Marino-Pasquetti. The Remodeling
Conjecture presents a concrete and universal recursion formula, based
on the complex analysis of a Riemann surface, that computes both
closed and open Gromov-Witten invariants of an arbitrary toric
Calabi-Yau 3-fold. Bouchard and Marino proposed a conjecture on
Hurwitz numbers as a limit case of the Remodeling Cojecture. They
defined a sequence of generating functions of simple Hurwitz numbers,
and conjectured that these quantities satisfy the Eynard-Orantin
recursion formula. The Bouchard-Marino conjecture was solved by the PI
and his collaborators in 2009-10. The current understanding that has
emerged since the publication of the PI's papers is the
following. The Gromov-Witten theory of a toric Calabi-Yau 3-fold is a
combinatorial counting problem on the A-model side of a topological
string theory. The generating function of the solution to this
counting problem satisfies a combinatorial equation, called the cut-
and-join equation by Zhou. Now take the Laplace transform of this
function. The result is a symmetric meromorphic function defined on
the product of a Riemann surface. This Riemann surface is identified
as the mirror curve of the toric Calabi-Yau 3-fold. The Laplace
transform of the combinatorial equation becomes (conjecturally) the
Eynard-Orantin recursion on the B-model side. The PI's
contribution to this general picture is the identification of the role
of the Laplace transform as the mirror map. This type of the Laplace
transform was further investigated in the PI's recent papers, and
has been utilized by other researchers in solving many related
problems.

Pure mathematical research is about a sharp excitement of
discovery. This excitement energizes young students in science
and engineering. The PI has been collaborating with both
undergraduate and graduate students, engaging them into the heart
of the research excitement. Instead of peeking into research
experience, these students have participated in the real
excitement of mathematical discovery. These lasting impacts have
inspired the students to become research mathematicians, and they
are continuing to produce new results. The relation between
algebraic geometry, symplectic geometry, combinatorics, random
matrix theory, topology, integrable systems, and string theory in
the Gromov-Witten theory was apparent in the early 1990s. After a
long time of extremely fruitful developments in each individual
area, we are back to a new level of interaction once
again. Instead of pushing an existing problem or conjecture, the
proposed project is aimed at understanding a new point of
view. It is expected to bring a further cross-fertilization of
these quite different ideas/areas in mathematical sciences. The
PI has organized several workshops specifically aimed at this
subject in the last two and a half years, which were attended by
many young researchers. He will continue to do so for further
dissemination.